Collaborative Research: The Role of Development and Life History Traits in the Evolution of Ceratopsian Dinosaurs

Ceratopsians are among the best known of dinosaur clades due to their
relative abundance, and the remarkable diversity of cranial synapomorphies such as horns
and frills that diagnose more derived members of the clade. Gigantism is a trend in
ceratopsian evolution that is accompanied by the evolution of progressively more
complex feeding mechanisms and cranial display diversity. Heterochrony, and in
particular peramorphosis have been proposed as major influences in ceratopsian
evolution to explain the evolution towards large size and late ontogenetic genesis of the
display in advanced forms. Likewise, the apparent hierarchical complexity of the feeding
apparatus suggests an evolution of character integration through both ontogeny and
phylogeny. All of these evolutionary hypotheses require detailed knowledge of both the
development and phylogeny of ceratopsian dinosaurs, but so far age estimates have been
poorly constrained and non-quantified and rigorous reliance on detailed phylogenies
limited.
In this study, an innovative approach to developmentally staging fossils based on
histological sectioning and Developmental Mass extrapolation is combined with novel
tree-based methods toward studying heterochrony and integration using a well-
established phylogeny of Ceratopsia. Based on well-sampled growth series of seven
backbone taxa representing the diversity of the clade, and a detailed phylogeny of
ceratopsians, we will examine whether there are correlated shifts in developmental timing
of synapomorphies (heterochrony) relative to growth strategies, and also if blocks of
characters represent integrated modules that fulfill criteria for being phylogenetically and
ontogenetically constrained. These quantitative studies will allow us to evaluate previous
hypotheses on the role heterochrony and integration have played in ceratopsian evolution.
By providing a quantified understanding of when in ontogeny synapomorpies are
expressed this research will help to resolve several taxonomic quandaries related to the
validity of species based on juvenile holotypes and provide a more accurate
understanding of ceratopsian diversity.
Broader Impact: This research represents a new integrative exploration of evolutionary
processes in a well-known group of dinosaurs. The novel methods and the results of this
research promise to be widely applicable to fields as diverse as population biology,
developmental biology, macroevolution and evo-devo, and will be disseminated through
peer -reviewed journals, presentations at professional meetings and professional web-
sites. Two graduate and two undergraduate students will be trained through this project,
and aspects of the research will be incorporated into university courses taught by both
PIs. Both PIs are involved with developing exhibits for natural history museum, and
parts of this research will be incorporated into two ongoing exhibit projects, and
associated educational web-sites and programming. Given the media interest in dinosaur
research, many opportunities to disseminate results of this work to the public will no
doubt arise.